An Intelligent Mechanical Aid for Manual Teaching

This fundamental engineering research should produce a new technology for cognitive rehabilitation. An intelligently controlled device will be fabricated for persons with cognitive impairments. This instrument will be able to analyze a patient's arm movements, distinguish between good and poor performance, then guide the person in making a more appropriate response. This device will be able to guide the person through unlearned and strongly guided motions to well- learned and non-guided motions. This new technology should be a valuable aid to persons who have had stroke, head trauma or other cognitive disabilities.